Collaborative Research: Quantum Proton Delocalization in Pseudo-Protic Ionic Liquids Redefining Classical Acid-Base Theory

Researchers from Rutgers University and Louisiana State University are investigating a new class of materials known as pseudo-protic ionic liquids (PPILs). These materials exhibit an unusual combination of properties that challenges the conventional understanding of how acids, bases, and electrically conductive materials behave. PPILs are formed by mixing weak organic acids and bases and display unexpectedly high ionic conductivity despite being composed primarily of electrically neutral molecules. Unlike other ionic liquids, quantum mechanical effects play a central role in determining the structure and function of PPILs. The research team will integrate state-of-the-art computational chemistry modeling with advanced spectroscopic measurements to reveal how hydrogen bonding and proton motion give rise to the unique properties of PPILs. Their discoveries could establish general principles for how quantum effects influence chemical reactivity and transport in condensed phases and inform the design of functional materials for use in chemical manufacturing. This project will also promote public engagement in quantum science and materials research through outreach and educational activities.

This collaborative project combines complementary expertise in computational chemistry, spectroscopy and materials characterization to determine how quantum mechanical effects govern the structure, dynamics and reactivity of PPILs. Candidate acid-based pairs with matched pKa values will be identified through quantum chemistry calculations and validated experimentally. Proton sharing and transport will be characterized in the acid-base mixtures by infrared and nuclear magnetic resonance spectroscopies, as well as ab initio molecular dynamics (AIMD), ab initio path integral molecular dynamics (AI-PIMD) and ab initio ring polymer molecular dynamics (AI-RPMD) simulations. Electrical conductivity measurements will confirm PPIL formation, while two-dimensional infrared (2D-IR) spectroscopy will probe the ultrafast fluctuations driven by quantum proton delocalization. Particular emphasis will be placed on identifying molecular conditions that promote short hydrogen bond formation and enhanced proton mobility across a broad range of acid-base mixtures. This mechanistic understanding will advance our fundamental knowledge of quantum phenomena in condensed phase systems and guide the development of next-generation materials for energy and manufacturing applications. In addition, the project will provide interdisciplinary training in chemistry, materials science and computational modeling to prepare graduate and undergraduate students for careers in STEM fields.